REU Site Program in Computational Sciences

This project will bring eight undergraduates to the National Center for Supercomputing Applications (NCSA) at the University of Illinois for a one semester experience during the school year. Recruiting will be national in scope. The selected students will be matched with an NCSA research project in accordance with their interests and background. The disciplinary focus will be in the computational sciences, with particular emphasis in the application of parallelization and visualization concepts and techniques.